Group Travel Grant for United States Participation in the Workshop on Disturbance and Recovery of Arctic Terrestrial Ecosystems, Rovaniemi, Finland, September 24-30, 1995

ABSTRACT A travel grant to the American Geophysical Union will support U.S. researchers to attend an international workshop on "Disturbance and Recovery of Arctic Terrestrial Ecosystems" to be held in September 1995 at the Arctic Center, University of Lapland, Rovaniemi, Finland. The workshop is organized under the auspices of the International Arctic Science Committee. The workshop will identify the Arctic ecosystem sensitivities to disturbance and mechanisms for recovery throughout the circumarctic region. This information is crucial to recommendations for remedial and research activities and plans in a part of the world that is very sensitive to climate and anthropogenic disturbances. ??